Directing Growth of Molecular Crystals on Functionalized Monolayers

The aim of this proposal is to demonstrate that the best opportunity for directing the crystallization process toward desired phases and morphology may be during the crystal growth process by controlling nucleation and directing the formation of preferred mesoscopic prenucleation aggregates. It will be shown that the growth and morphology of molecular crystals on substrates can be directed by (1) using surfaces with monolayers that provide uniform wetting properties and controlled nucleation, and (2) by promoting self-assembly interactions at surfaces derivatized with carefully designed functionalized monolayers. This award is part of the "Materials Chemistry and Chemical Processing Initiative," and it is jointly funded by the Division of Materials Research, and the Chemistry Division.